Effects of Species Composition and Environmental Context on Redundancy Within a Functional Group: A Test With Freshwater Mussels

Species that are believed to play the same functional role in ecosystems are often placed in
functional groups, types or guilds, and redundancy of ecological function is predicted to be highest
within such groups. The concept of functional groups composed of interchangeable, redundant
species is appealing because it simplifies the study and management of ecological systems.
However, there are problems limiting the applicability of this concept. The degree of redundancy
among species assigned to many functional groups or guilds is unknown and we do not understand
the degree to which the functional roles of species change with environmental context. The vast
majority of our knowledge of species roles and how they are influenced by the environment comes
from studies of short-lived, terrestrial plants. We now need to broaden our understanding of
species roles in other equally important systems.

Freshwater systems, and streams in particular, are losing biodiversity at a higher rate than
terrestrial or marine systems, but few studies have examined functional redundancy in these
systems. Freshwater mussels are a functional group of long-lived, benthic, burrowing filter-feeders
that are thought to play an important role in stream ecosystem function. Within this functional
group, the potential for redundancy in ecological roles should be high because species have similar
life histories, typically occur as speciose assemblages, and there is little evidence for differences
in microhabitat or resource preferences between species. However, we have almost no quantitative
information on either the overall importance of mussel assemblages to stream function or the roles
of individual species. In recent years, many mussel populations have undergone a drastic decline.
In order to predict how this loss of both species and overall mussel biomass will impact stream
ecosystems, we must quantify the effects of both overall mussel abundance and individual species
on ecosystem processes, and we must understand how these relationships may change with
environmental conditions.

The proposed research will address the following questions: (1) What is the overall importance of
the mussel functional group to stream ecosystems? What ecological processes do mussels
perform in streams? How do these processes relate to overall mussel abundance/biomass? (2)
Are species within the mussel functional group ecologically redundant? Do mussel species vary
in their performance of ecological processes? Do ecological effects of mussel species within an
assemblage vary based on species composition and/or abundance? (3) How are the overall
importance of the mussel functional group and effects of species roles within the group influenced
by environmental context? Are the ecological effects of the overall mussel assemblage and of
individual species constant or do they change with environmental conditions? A series of
complementary laboratory stream and field enclosure experiments will measure the ecological
function of single and multi-species assemblages of mussels under varying abundance and
environmental conditions. Laboratory stream experiments will focus on ecological processes
performed by mussels (eg. filtering rates, nutrient excretion) and field enclosure experiments will
examine the effects of mussels on the rest of the benthic community. Small-scale laboratory
experiments and analyses will quantify the potential contributions (eg. nutrient excretion and
biodeposition rates) of different mussel species to streams under differing conditions, and
mechanisms underlying differences in ecological function between species (eg. gill morphology,
behavior). Finally, experimental results will be combined with quantitative information from an NSF-funded mussel biodiversity inventory to make predictions about mussel functional role and
redundancy in different stream systems.